WWUNet to NorthWestNet Connection

Western Washington University is establishing a connection to NSFNET via a 56,000 bits per second line through the NORTHWESTNET mid-level network. The connection makes permanent a trial connection to NORTHWESTNET. The connection enhances collaborations of campus scientists with colleagues in fields including physics, geology, engineering, sociology, liberal studies, computer science, finance and library science. This award funds part of the costs for two years.***//